Workshop on Future Applications for Absolute-g

This award will provide funding to defray a portion of the costs for a workshop on the future applications of improved measurements of absolute gravity. The recent development of a transportable instrument which can measure gravitational acceleration with a working accuracy of one microgal has opened up the possibility of new capabilities in research areas such as global change (sea level changes), neotectonics, volcanism, and geodynamics. This workshop, to be held in Boulder, Colorado on March 22-23 will bring together 20-40 active workers in these research areas from university and federal agency laboratories to discuss the scientific implications of the new instrumentation and the most efficient means to make such instrumentation available to the U.S. geophysical research community.